Biotechnician Training

Harry S. Truman College of the City Colleges of Chicago is conducting a four-year project for Biotechnician Training. This project will develop a two-year curriculum leading to an A.A.S. degree in biotechnology, it will prepare students for employment as biotechnicians, it will increase the representation of minority and disadvantaged populations in science and high technology, and it will introduce the College's faculty to current developments in biotechnology.